Next Generation Preschool Science: An Innovative Program to Facilitate Young Children's Learning of Science Practices and Concepts

SRI is developing, iteratively refining and evaluating a science curriculum for Pre-K classrooms with units on Plant Growth, How Things Move, and What Makes Shadows. Working with EDC and WGBH, the project is integrating traditional classroom resources (large and small group activities, hands-on activities, read-alouds) with digital media (touch screen tablets, photos and short videos, and games/simulations). The importance of this approach is that it facilitates the implementation of quality science instruction in pre-schools by reducing the resources and commitment needed. The project is also producing professional development resources for teachers. Project evaluation is by the Concord Evaluation Group. The products of the project are being distributed by PBS Media.

Using an Evidence Centered Design approach, the project is doing a Phase I development and pilot study during the first two years, followed by a Phase II field study in year 3, with 10 classrooms in California and 10 in New York, half of which will be for comparison purposes. Ten children from each classroom are being selected through a stratified randomization process for a more detailed examination of student outcomes. There are 8 research questions covering the three phases of the project; development, implementation, and sustainability. Data collection on child learning is using the project developed science assessment as well as a standardized assessment of children’s science learning ?LENS on Science.? Evidence on teachers’ confidence is being collected with the Preschool Teachers Attitudes and Beliefs about Science scale (P-TABS). In addition, the project is conducting interviews and observations in the 10 classrooms where teachers are implementing the curriculum units.